Mathematical Sciences: Research in Set Theory

The investigator will continue his research in set theory and the foundations of mathematics. The work on this project will be mostly in the theory of large cardinals and forcing and will concentrate, among others, on the study of singular cardinals, stationary sets, normal filters, elementary embeddings, and iterated forcing.